Acquisition of Infrared Imaging System

This is a request to obtain funds to acquire an infrared thermal imaging system. The equipment will be used by five investigators as part of several ongoing studies of plant and animal physiology. The specific projects described in this proposal utilize thermal imaging to monitor cutaneous vasomotor changes in dogs, rats and rabbits with respect to heat, exercise and hydration; to study thermo regulation in desert insects and Adelie penguins; to study heat and pollutant effects on gas exchange in plants; to measure the influence of solar radiation on amphibian thermal regulation.